Operational Improvement of Wastewater Treatment Plants by Utilizing Electron Beam Technology to Enhance In-Plant Processing and Sludge Recycling

9525059 Waite This is an award to support research, the objective of which is to determine the parameters for design of electron beam radiation processes to treat wastewater and intermediate products of treatment system components. Specific examples of research to be investigated include use of ionizing radiation of the electron beam for modification of process residuals to improve their biodegradability when subjected to aerobic and anaerobic digestion, processing of anaerobic digester supernatant fluids to improve their biodegradability and to reduce their disruptive effect when recycled to the treatment system for additional exposure to biotreatment processes, improvement of sludge dewaterability by modification of their fluid properties and acceleration of biostabilization processes such as composting and soil injection. The project involves an initial workshop to be conducted in January of 1997 conducted in cooperation with the International Atomic Energy Agency for guidance in conduct of the pilot and engineering-scale research. Electron beam radiation has been found to be effective in disinfection of sludges produced during treatment of domestic wastewater. The ionizing radiation of a beam of energized electrons has been shown to be effective in destruction of organic compounds of pollutional significance. Indications are that electron beam radiation could be utilized productively within existing wastewater treatment plants to improve the efficiency of other treatment system components. This project will utilize an existing 1.5 MeV electron beam accelerator located at the Miami-Dade Wastewater Treatment Plant on Virginia Key to obtain engineering-design parameters. This engineering-scale operation will be guided by results from pilot-scale research using a 4 MeV linear accelerator being installed at the University of Miami's Laboratory for Pollution Control Technologies. ***